Toward a Standard Model for Medium to Heavy Mass Nuclei

"A standard model for medium to heavy-mass nuclei"

Our current knowledge of the structure of atomic nuclei is still far from
complete as it is mainly rooted on the properties of nuclei in the vicinity
of the line of beta stability (nuclei with a ratio of neutron number over
proton number reasonably close to one). For that reason and because the
understanding of nuclei has a broad range of application, including
Cosmology and Astrophysics, the physics of exotic rare isotopes has become
one of the top research priorities both in the U.S. and worldwide.

In order to accompany the present development of new rare-isotopes
accelerators around the world, the goal of the present theoretical project
is to develop a fully microscopic model of medium to heavy-mass nuclei. It
is quite urgent to realize such a long-term goal of nuclear structure since
current best many-body methods are hardly predictive when applied to unknown
medium-mass isotopes with a large excess of neutrons. Among several
important features of the project, our goal is to achieve a better
understanding of the modifications brought about by the presence of a
neutron-rich environment to the nucleon-nucleon interaction. This is a key
element to describe accurately medium-mass neutron-rich nuclei which are of
prime interest to unreveal nucleo-synthesis scenarii in the universe.